Support Service (DGC-9216105) "Workshop Support for ENG and CISE Directorate June 28-29 and September 8-9, 1994" (Task Order No. 71)

9416453 King Contractor support of two cross-directorate panel meetings. ***